Conference on Reducing Risks from Environmental Chemicals Through Biotechnology; July 19-22, 1987; Seattle, Washington

This proposal by Dr. G. Omenn of University of Seattle, Washington is for a workshop to examine the use of genetically engineered microorganisms in degradation of toxic wastes in the environment. Biotechnology, including genetic engineering of organisms, offers much promise for important applications in the modification and control of toxic pollutants. Advances in engineering, molecular biology, and microbial ecology must be brought together to achieve significant biodegradation and in situ management of chemical wastes. At the same time protection of local and possibly distant ecosystems must be assured. As landfills are overwhelmed, complete in situ biodegradation or reduction of toxicity to levels suitable for incineration must be emphasized. Increasing knowledge of the diverse capabilities of microorganisms, of genetic means to manipulate those capabilities, and of the factors influencing persistence and action of these organisms in various environments offers new avenues to attack major problems in pollution control and clean- up. It is essential to bridge engineering, microbiology, and ecology in devising effective strategies for such applications. It is timely to review feasibilities studies and field applications that have been carried out. Federal and state agencies are grappling with policy questions and permit requests for use of genetically-modified organisms; knowledge from desirable environmental applications can inform those decisions. NSF has a significant leadership role in these matters at the federal level. Dr. Omenn has contributed significantly to this area of study and concern for many years and is highly respected in the field. The University of Washington is well equipped and suited to host this workshop to a productive conclusion. The Program recommends funding.